CAREER: A New Approach to Clustering Based on Synchronization of Coupled Oscillators with Application to Content Based Image Retrieval

. This research project will first develop a new scalable algorithm for clustering that can detect an unknown number of arbitrarily shaped clusters. This approach will be based on a synchronization model of plus-coupled oscillators. Next the project will build a CBIR (Content-Based Image Retrieval) prototype using the clustering algorithm developed in this research. The career development plan will include training students in CBIR as well as initiating a research seminar series. The proposed research will also support undergraduate design projects.